SGER: Properties of Thermal Protein Microspheres

WPC 2 B P Z Courier 10cpi #| x Sj x 6 X @ 8 ; X @ HP DeskJet 500 HPDES500.PRS x @ x X , , 0 FX @Courier 10cpi CG Times 12pt 2 N X Y F ` " m o 8 ; ^<D\dd DDDd DDDDddddddddddDD X | |x DL | t l| DDDddDXdXdXDdd88d8 ddddHL8dd ddXXdXd d ddDDddd D d d d X X X X X X|X|X|X|XD8D8D8D8 d d d d d d d d d d X d d d d dtd X X X X X X X d|X|X|X|X d d d d d d d dD D D8D L d|8|8|8|8|8 d t d d d d H H HlLlLlLlL|8|8|8 d d d d d d d X X X d|8 d HlL|8 d d d d d D/ N d ddDXPPdd ddd dHdddd H d x H d h 1D DD x dp d x d x X L p x xdx X x x xL xxxxxxxxxxxxxxxxxxxLLLLLLL x ? x x x , Sj x 6 X @ 8 ; X @ 8 p C < , W X p P rk ; X P presence of water to form cell-like structures called thermal protein (TP) microsp s. These TP microspheres behave in many ways like true neurons; they display memb Y # X p P rk ; W X P# 92 Fox Many scientists interested in evolution are aware that when mixtures of amino acids are heated they polymerize to thermal proteins which, in turn, self-assemble in the presence of water to form cell-like structures called thermal protein (TP) microspheres. These TP microspheres behave in many ways like true neurons; they display membrane potentials, generate action potential-like electrical discharges in response to light, form junctions, and extend axon-like outgrowths. Thus, TP microspheres can be c onsidered "protoneurons:, the scientific study of which may help to elucidate which basic properties of modern day neurons are ingerent to these protocells that assemble in a nonrandom way under conditions believed to have existed on the primitive Earth. In the proposed research, the chemical, electrical, and possible psychological microspheres will be studied. The electrophysiological responses to light will be quantified and possible ion channel-like characteristics of their membranes explored. Finally, whether any relatively permanant change in the behavior of TP microspheres can be induced by experience will be explored. This will be determined by testing interconnected networks of TP microspheres for basic learning processes known to occur in both vertebrate and invertebrate species, as well as in single-cell eukaryotic organisms. The basic learning processes to be investigated include habituation, sensitization, and possible associative changes which might occur in TP microspheres electrical response to light, as a result of experience. ***